Molecular Approaches Ion Channels Summer Course; July 22-August 23, 1991; Pacific Grove, California

The training program, "Molecular Approaches to Ion Channels", will provide advanced graduate students and professional scientists with in-depth exposure to a modern, multi-disciplinary approach to the study of ion channels in cell membranes at the molecular level. Methods covered include patch clamp applied to native cells and transformed cells expressing cloned gene products, and biochemical and molecular analysis of channel expression. Training provided by this course will directly have an impact on the scientific community by guiding the efforts of students and established investigators who are seeking to explore new aspects of current research problems.